The Salaries of Public School Teachers

The proposed research examines the determinants of public school teacher salaries in the state of California. During the planning period, the study estimates the relationships between wages and characteristics of the teachers, school districts, students, and parents. Lifetime wage profiles are evaluated with reference to human capital, agency, and median voter theories. The study tests three hypotheses on union behavior: whether unions decrease the dispersion of wages, whether unions increase labor's share of total costs, and whether unions increase the share of compensation allocated to fringe benefits. The research also investigates the adequacy of conventional empirical approaches to wage determination in markets characterized by explicit contracts. This research will both increase our understanding of salary variation under explicit contracts and serve as the basis for a behavioral model of wage and employment determination in a unionized market. Such a model will let policy makers predict the union and school district responses to changes in the district's exogenous budget constraint and calculate the effects of an increase in state educational expenditures on teacher salaries and class size.